Research and Development Initiatives Applied to Teacher Education

Materials are being developed to support teacher education activities at project sites in Georgia, western New York, Michigan and other sites throughout the country as well. The units focus on selected content and processes emphasized in the NCTM Standards. Their development is informed by research on the teaching and learning of mathematics. Leadership Seminars that feature the units will be held for individuals involved in working with secondary teachers in a variety of contexts. Seminar participants will implement the units into their teacher education programs, analyze the effectiveness of their use, and offer suggestions on how the units might be further refined. Leadership Seminars will be open to state and local teacher educators and to teacher educators associated with various statewide systemic initiatives or statewide teacher collaborative projects. An inservice program that features the units will be held for teachers who supervise student teachers in an effort to better articulate preservice and inservice programs. The project's teacher education activities will provide a rich context for conducting research on teacher's knowledge and beliefs about the content and processes in the units, about ways teacher educators implement the units and the role required of them in doing so, and the nature of teachers' experiences as they leave their preservice program and begin their careers as mathematics teachers.